Conference on Stochastic Analysis and Harmonic Analysis

A Conference on Stochastic Analysis and Harmonic Analysis will be held at Northwestern University from June 26-30, 2000. The conference is part of an Emphasis Year in Probability Theory in the Department of Mathematics at Northwestern. The funds will be used primarily for support of women and junior researchers to allow them to attend the conference.